CAREER: Multi-Level Multi-Material Problem Solver Environment with Semisolid Material Applications and Education

There have been substantial developments in computational methods
and capabilities for material sciences applications. These include
the theory and practice of material point methods (MPM), multiple
temporal and spatial scale methods, domain decomposition methods,
together with increases in memory capacities, processing rates, and
software capabilities for distributed computing. We will develop
and combine these methods and capabilities in a Multi-Level
Multi-Material Problem Solver Environment (MLMM PSE). The MLMM PSE
will target applications such as crack propagation, granular materials,
impact problems, fragmentation, damages among others. We will
demonstrate the PSE for a novel and important engineering application
in semisolid materials.
The complexity inherent in this combination demands a computational
framework that provides broad-based infrastructure. As a
{\it computational aim} of this project we will construct this
infrastructure in the MLMM PSE for material sciences applications.
We will create effective computational modules and interfaces that
will be necessary to build the MLMM PSE. These modules will be
integrated with parallel AMR and nonlinear solvers libraries, which
will facilitate code development, efficiency, load balancing and
portability on a variety of parallel platforms and will support
visualization capabilities. As a {\it theoretical aim}, we will design,
analyze, and develop innovative numerical methods to enhance accuracy,
efficiency, scalability and robustness of the MLMM PSE. We will
investigate hierarchical simulation involving explicit and implicit
time dependent adaptive grid and particle refinement. This important
and novel area presents considerable mathematical and computational
challenges. As an {\it educational aim}, we will develop with
undergraduate students web-based MLMM PSE courseware that illustrates
the computational solution of problems that have arisen in our research.